Investigations of the Use of Pentacovalent Organophosphorus Compounds in the Production of Phosphonates

9409619 McClure With this Career Advancement Award, the Division of Chemistry is supporting the research of Dr. Cynthia K. McClure of the Department of Chemistry at Montana State University. Professor McClure will use the award to learn the background, theory and application of high-level calculations on comlex molecules. The knowledge gained will then be put to use to design improved syntheses in the area of organophosphorus chemistry. She will also spend time learning the best methods of accomplishing and/or increasing the bio-availability of these types of compounds.